REG: Matching Funds Request for Purchase of an EnvironmentalScanning Electron Microscope for Materials Engineering Research

9310944 Drzal The purpose of this Research Equipment Grant Award is to allow the purchase of an Environmental Scanning Electron Microscope (ESEM) by the Composite Materials and Structures Center at Michigan State University. This device will be used to perform processing and durability research in polymer, cement and ceramic matrix composites in order to increase their use on the durable goods industry. Studies will include investigations of the failure of composites under combined thermal, mechanical and moisture environments.